A Micromotor-Based Spatial Light Modulation (SLM) System

With the advent of electrostatic micro-motors, come possibilities for small, fast and inexpensive spatial light modulation (SLM) devices, particularly in the areas of invasive body imaging, catheter-directed laser ablation surgery, image scanning vector-controlled light-beam modulators. Present-day SLMs are typically limited in their range of motion or are quite large in size. Micro electro- mechanical system (MEMS) technology opens possibilities for compact, large-deflection, multi-axis, high-bandwith, servo- controlled light-beam deflectors. SRC is interested in investigating the utilization of a particular electrostatic micromotor, the "Wobble Motor", for use as one- or two-degree-of-freedom spatial light modulation device. This proposed research will investigate the possible bandwith and resolution of such devices, how these parameters are affected by device scaling, the design of rotor position sensors, and thus the suitability of Wobble-based micro-acutators as servo-controlled SLM devices for a variety of applications. Specifically, the Phase I research would consist of system modelling, control development, and preliminary feasibility demonstration of a two-degree-of- freedom laser light-beam director. Micromotor-based SLMs would open up an important application area in the rapidly expanding MEMS field and the rapidly growing medical laser field.